Dissertation Research: Spanish Causation and Restructuring Constructions

ABSTRACT Causative and Restructuring constructions have played a central role in Romance linguistics. These constructions hold a special interest because they seem to behave in some respects like complex sentences (biclauses) and in other respects like simple sentences (monoclauses). This dual behavior has proved difficult for current syntactic theory to account for in a principled fashion. The claim explored here is that the biclausal properties of Causative and Restructuring constructions can be accounted for within a purely monoclausal analysis-that is, an analysis that treats these constructions purely as simple sentences. This dissertation project develops such an approach for Spanish. Among the analytic issues addressed are: the interaction of Restructuring with passive, the interaction of Causative with reflexives; and the syntax of Restructuring constructions formed from psychological verbs. Because many of the revelant facts have not yet been documented, this project constitutes a contribution to the description of Spanish syntax as well as to the analysis of a theoretically recalcitrant construction.